Novel Instrumentation and Experimental for Absorption and Multidimensional Luminescence Spectroscopy at Liquid Nitrogen and Helium Temperatures

Professor Andres Campiglia of North Dakota State University is supported by the Analytical and Surface Chemistry Program for fundamental studies exploring the use of low temperature matrices for the spectroanalysis of polyaromatic hydrocarbons, which are toxic compounds found in the environment. The use of multiple parameters (e.g. excitation wavelength, emission wavelength, fluorescence and phosphorescence lifetime) will allow the analysis of complex mixtures of PAH's at very low concentrations. A fiberoptic is implanted in the matrix itself for sensitive detection.

Polyaromatic hydrocarbons are extremely toxic compounds found in the environment, near oil refineries, for example. The spectroscopic detection and identification of complex mixtures of closely resembling compounds is an analytical challenge. Students will be trained in methods of low temperature emission methods that have the potential for significant impact in the rapid, cost-effective sampling of soils and water in polluted areas.